Introductory Manufacturing Laboratory in Aerospace Engineering

A three-axis numerically controlled mill and a computer-aided manufacturing system is integrated with an existing computer- aided design capability to give undergraduate students the ability to design and manufacture complex parts. This capability is directly incorporated into at least two courses in the form of manufacturing experiments. One laboratory experiment insures that every undergraduate has at least once, prior to graduation, designed, manufactured, and tested a component part. The second manufacturing experiment is used to test a student's ability to design optimal parts. The manufacturing capability will further enable prototyping and construction of complex aerodynamtc models that have been conceived of, in any of the presently offered design and student project courses.